Faculty Awards for Women

The research extends the current work in human supervisory control of computer-integrated manufacturing systems. This research seeks to understand the proper role of the human operator in sophisticated manufacturing systems, and given that understanding, to develop computer-based intelligent workstations and operator associates to the human operator responsible for system safety and productivity. In particular, the research addresses three critical facets: the development of models of human supervisory operators in manufacturing systems; strategies and methods for integrating analytic methods and knowledge-based tools for decision support; and the creation of an experimental, laboratory environment to test candidate human supervisory controls systems.